Multiphoton Processes in Intense Laser Fields

Theoretical and computational research into the multiphoton excitation and ionization of simple molecules will be performed using time-dependent quantum mechanical methods.